U.S.-Germany Cooperative Research: Picosecond Diagnostics for the Characterization of Reactive Systems in the Gas Phase

This award supports Dr. Mark A. Linne and a graduate student from the Colorado School of Mines in a collaboration with Katharina Kohse-H`inghaus of the Department of Physical Chemistry at the University of Bielefeld. The collaboration between the two groups will investigate the use of novel picosecond laser sources and techniques to evaluate and develop laser diagnostics for reacting gas-phase flows in processes such as combustion, chemical vapor deposition, and plasmas. The group in Bielefeld is well- known for its research on the fundamental aspects of laser-induced fluorescence diagnostics. The Colorado group has a laboratory setup that complements the German capabilities and has been used for the development of several non-traditional picosecond laser techniques. The main goals of the work are to study energy transfer in small molecules, develop new picosecond diagnostics, combine the capabilities of the two groups, and bring younger members of the group into the collaboration.